GLORIA Investigation of the Fastest Spreading Segment of theGlobal Seafloor Spreading System

The plate boundary between the Easter and Juan Fernandez microplates appears to have the fastest known spreading rate on East Pacific Rise. The lack of transform faults suggests that a possible threshold spreading rate above which the classic spreading center/transform fault configuration is not stable. A proposed GLORIA/hydrosweep survey of this area will determine its present geometry and its tectonic evolution over the past 4.8 m.y.